Establishment of an Industry/University Cooperative ResearchCenter in Information Management (Planning Phase)

The lack of knowledge and the inadequacy of tools and techniques for effective management of information has serious negative impact on the management and control of enterprises. Industry is beginning to recognize the need for research about the creation, storage/retrieval, display, transmission, management, and use of information, as well as how to integrate all of these processes through a total systems approach. One of the ways industry can support the research necessary to address their problems is through an Industry/University Cooperative Research Center. This planning grant is studying the feasibility and viability of an Industry/University Cooperative Research Center in Information Management at the Georgia Institute of Technology in collaboration with the University of Arizona. The study is addressing the research interests and needs of industry, alternative organizations, policies and operations of a Center, and the potential for such a Center to become self-sufficient. The Co-Principal Investigators and their colleagues are noted researchers in their fields and have the necessary expertise and industry contacts to perform this study. The planning grant is being co-funded by the U.S. Army Institute for Research in Management Information Communication and Computer Science. The Program Manager recommends that the Georgia Institute of Technology in collaboration with the University of Arizona be awarded a $100,000 grant for one (1) year to fund this study.